High-Order Asymptotic and Numerical Techniques for the Simulation of Wave Scattering Processes

The PI proposes a development of effective and accurate algorithms for
simulation of electromagnetic and acoustic wave scattering processes.
The project includes the development of efficient, error-controllable
schemes based on asymptotic expansions and on direct discretizations.
While the computational emphasis will be on efficiency,
error-controllability will demand careful mathematical analysis; both
requirements will call for a number of intellectual innovations. Among the
methods based on asymptotic expansions, the PI proposes to: (i) further
advance his work on high-order geometric perturbation methods. Here,
effort will concentrate on the design of alternative schemes with improved
stability properties; and (ii) the search for an innovative (rigorous)
high-frequency (integral-equation) solver for scattering by surfaces and
bounded bodies that exhibits the advantages of asymptotic high-frequency
treatments (i.e. a frequency-independent number of degrees of freedom)
while allowing for error control at any fixed, finite frequency. A
combination of the developments in (i) and (ii) will also be sought in the
design of a "multi-scale" algorithm. The program on direct methods, on the
other hand, shall be concerned with the development of algorithms for the
treatment of penetrable bodies. For this, it is proposed to develop (iii)
accelerated high-order methods for (volumetric) integral equations;
novelties in the proposed approach include the design of specialized
high-order quadrature rules for volume potentials, and their incorporation
into a general strategy for their fast evaluation, based on (planar arrays
of) "equivalent sources". Finally, the proposal presents a project on (iv)
certain specific aspects of (Runge-Kutta) discontinuous Galerkin finite
element approaches, including the implementation of exact radiation
conditions, the design of optimal inter-element fluxes and
time-integration strategies, and the derivation of a-posteriori error
estimates for adaptive error control.

Electromagnetic and acoustic devices are ubiquitous in present day
technology. Indeed, electromagnetism and acoustics have found and continue
to find applications in a wide array of areas, encompassing both civilian
and military purposes. Among the former, applications of current interest
include those related to communications (e.g. transmission through optical
fiber lines), to biomedical devices and health (e.g. ultrasound,
tomography, power-line safety, etc), to circuit or magnetic storage design
(electromagnetic compatibility, hard disc operation), to geophysical
prospecting, and to non-destructive evaluation (e.g. crack detection), to
name but just a few. Applications in defense, on the other hand, include
the design of military hardware with decreased signatures ("virtual
prototyping"); automatic target recognition (e.g. bunkers, mines and
buried ordnance, etc); propagation effects on communications and radar
systems (e.g. over complex terrains, through the atmosphere, etc);
tactical antenna design; etc. Although the principles of acoustic and
electromagnetic wave propagation are well understood, their application to
practical configurations of current interest, such as those that arise in
connection with the examples above, is significantly complicated and far
beyond manual calculation in all but the simplest aspects. These
complications typically arise from geometrical and/or compositional
complexity in the underlying structures, from the intricacies of the
electromagnetic fields, or from both. The significant advances in computer
modeling of acoustic and electromagnetic wave interactions that have taken
place over the last two decades, on the other hand, have made it possible
to shift the classical "trial and error" design paradigm for devices that
work on such interactions to one that heavily relies on computer
simulation. Still, the sheer complexity of some applications of current
interest and the ever-increasing industrial demand for faster and more
reliable software, present significant challenges to state-of-the-art
numerical solvers. This proposal is focused on the design and testing of
improved algorithms that, based on sophisticated mathematical techniques
and developments, will result in implementations that will substantially
expand on the capabilities of presently available simulators.